LIONS: Local Investigations of Natural Science

"Local Investigations of Natural Science (LIONS)" engages grade 5-8 students from University City schools, Missouri in structured out-of-school programs that provide depth and context for their regular classroom studies. The programs are led by district teachers. A balanced set of investigations engage students in environmental research, computer modeling, and advanced applications of mathematics. Throughout, the artificial boundary between classroom and community is bridged as students use the community for their studies and resources from local organizations are brought into school. Through these projects, students build interest and awareness of STEM-related career opportunities and the academic preparation needed for success.